Singularity formation in geometric flows

Geometric flows are mathematical rules that deform shapes and spaces over time, smoothing irregularities much like the diffusion of heat. The geometry may nevertheless pinch or concentrate, producing singularities where the usual description breaks down. Understanding these events and continuing the evolution past them has led to major advances in geometry and topology, including the resolution of the Poincaré Conjecture. This one-year project studies singularities in two central geometric flows: Ricci flow, which evolves the geometry of a space, and mean curvature flow, which evolves surfaces. Through basic mathematical research, education, and mentoring, the project contributes to NSF’s mission of promoting the progress of science. The investigator will also mentor students, complete a mathematical textbook, and develop educational materials and assessment practices for foundational mathematics, including work addressing the growing use of artificial intelligence tools.

The project studies singularity formation and resolution in Ricci flow and mean curvature flow, building on structural parallels between the two flows and on recent work of the investigator and collaborators. Although many of the methods apply in arbitrary dimensions, a major motivation is a theory of Ricci flow through singularities in dimension four. One part seeks special self-similar solutions, called expanding solitons, that smooth out cone-shaped singularities, with the goal of constructing such models on new topologies. Another part studies ancient asymptotically cylindrical Ricci flows, which model cylindrical singularities. Using methods from recent joint work on mean curvature flow, the project seeks high-order asymptotic descriptions of these solutions in higher dimensions, showing that outside a controlled central region they resemble Bryant solitons or ancient ovals and relating the broader class to kappa-solutions. The mean-curvature-flow component investigates generic flows and continuous families of surface flows, emphasizing the stability of singularities under perturbations and dependence on initial data. Together, these directions aim to clarify which singularity models can occur and how geometric flows can be continued past singularities.